Collaborative Research: Quantifying the Effects of Iron and Light on the Growth of Diatoms from the Ross Sea, Antarctica

Proposal:0739685 PI Name:Sedwick, Peter

Proposal Title: Collaborative Research: Quantifying the Effects of Iron and Light on
the Growth of Diatoms from the Ross Sea, Antarctica
Institution: Bermuda Institute of Ocean Sciences (BIOS), Inc.
Abstract Date: 04/08/08
Intellectual merit: In much of the Southern Ocean, iron and irradiance are thought to
exert major controls on the timing and location of blooms of the two major phytoplankton
groups, Phaeocystis antarctica and diatoms. Recent numerical modeling studies have
simulated the broad-scale features of algal biomass and species composition in the
southern Ross Sea, by prescribing a higher iron requirement for the growth of diatoms
relative to P antarctica and by allowing higher growth rates by P. antarctica under low
irradiance. However, there are large uncertainties associated with the parameterizations
used in these models, particularly with regard to phytoplankton iron parameters, which
are typically assigned static values. Results of recent laboratory experiments with
colonial P. antarctica suggest that the iron requirement of this species can be relatively
high, and appears to vary strongly as a function of irradiance. In this project, the
investigators will use laboratory experiments to quantify the iron requirements of diatom
species that are representative of open-water, ice-edge and sea-ice environments of the
southern Ross Sea, including Thalassiosira gracilis, Pseudo-nitzschia subcurvata,
Fragilariopsis cylindrus and Navicula glaciei. The experimental data will be used to test
a number of hypotheses concerning the effects of iron availability, irradiance and UV-B
exposure on growth rates, production of dimethylsulfoniopropionate and dimethylsulfide,
cellular pigment composition, and the relative uptake of macronutrients. In addition, the
investigators will conduct preliminary "algal competition experiments", in which the
growth of mixed assemblages containing both diatoms and colonial Phaeocystis
antarctica will be examined, as a function of iron and irradiance, with and without UV-B
exposure.
Broader impacts: The research will provide quantitative information that is required to
construct robust, mechanistically-accurate numerical models of Southern Ocean
ecosystems and biogeochemistry. This project also will make educational contributions
at several levels, through the direct involvement of graduate and undergraduate
students in laboratory research, and through planned outreach activities aimed at K-12
students and the general public, including lecture presentations in Bermuda and South
Carolina, and the development of web materials in consultation with a group of K-12
science teachers.